The Function of the Nuclear Pores During Cell Proliferation

Experiments are proposed to investigate the permeability properties of the nuclear pores during periods of cellular activity in which there are differences in macromolecular exchanges between the nucleus and cytoplasm. Since qualitative and quantitative changes in RNA and protein synthesis are known to occur during cell proliferation, the experiments will be performed on quiescent, growing, and dividing human diploid fibroblasts, and also HeLa cells in different stages of the cell cycle. Pore function will be analyzed by microinjecting various size colloidal gold particles coated with 1) endogenous proteins that are transported into the nucleus, 2) exogenous macromolecules that lack transport signals but can diffuse through the pores, and 3) RNA which is transported out of the nucleus. The coated gold particles will be injected into either the nucleoplasm or cytoplasm, and the cells will be examined with the electron microscope. By analyzing the size distribution and number of particles present in the nucleus and cytoplasm it should be possible to determine the functional size of the transport and diffusion channels, as well as the relative rates of exchange across the envelope. In addition, the percent of pores involved in transport during specific periods of activity will be determined. Nuclear pores selectively control the flow of macromolecules between the cytoplasmic and nuclear compartments of the cell. The rules governing transport are currently unknown. The studies proposed are significant in that the results obtained will provide a clearer understanding of the types of signals that are involved in establishing the direction and rate of transfer.